Planetary Exploration in the Classroom

Planetary exploration captures the imagination and interest o students having both science and non-science backgrounds and aspirations. Current textbooks that simply present a few pictures from planetary missions fail to capitalize on the potential for utilizing the excitement of planetary exploration as a theme for learning about physical processes and the methods of science. The project is developing a curriculum that will build upon the appeal of space exploration to promote interest in science and to teach modern methods of scientific investigation and discovery. It uses a hands-on approach in exploring processes which shape planetary worlds using actual spacecraft images and existing Macintosh computers. Through a set of exercises, students learn that scientific images are no longer pictures in books. Instead, modern scientific images are digital objects that can be manipulated and examined in quantitative detail. Spacecraft images are used to motivate scientific inquiry but the curriculum also emphasizes that digital imaging is becoming inherent to all areas of beyond science. The new curriculum involving digital imaging will be incorporated into our introductory level classes which attract a broad cross section of science and non-science students. These students should carry their scientific and digital imaging experience with them as new tools in their pursuit of majors and careers in all areas of science, engineering, medicine, humanities, and education. Because the curriculum is at the introductory science level and uses both images and software available in the public domain (for both Macintosh and PCs), these exercises can be available for wide use in other colleges, universities, and high schools.